CGS/NSF Dean In Residence

The purpose of the CGS/NSF Dean-in-Residence Program is to enhance the partnership between the National Science Foundation (NSF) and the graduate community by creating a mechanism for ongoing and substantive communications between senior administrators at our universities providing graduate education and the NSF. Based on the model of the Council of Graduate Schools (CGS) Dean-in-Residence Program, CGS established the first CGS/NSF Dean in Residence in 2002 under a grant from NSF.